Biomedical Engineering Laboratory for Automated Machining and Computer Aided Testing

The purpose of this project is to enhance the current status of design courses in biomedical and mechanical engineering by providing new equipment and techniques in prototype design. The new equipment and concepts to be introduced include: computer aided machining (CAM), computer controlled data acquisition, and prototype development by device testing. This system will enhance the current design course curriculum by providing the means of implementing design changes. By using this system students may produce a prototype design, test the design, and make design changes by simply updating a computer file. The successful execution of this project will result in abstract articles concerning the development of new techniques and laboratory manuals to be made available to other institutions. Students will benefit by knowledge gained in using the new systems recently made commercially available, as well as through the additional amount of practical design experience afforded by streamlining and automating the design process. Most importantly, students will learn to improve and reinforce their designs, a process that is not currently practical without the automated equipment.